Computer Equipment for IDD Feed at the University of Iowa

The University of Iowa is seeking support to acquire equipment for setting up an IDD feed to the Iowa Institute of Hydraulic Research (IIHR). The equipment consist of a high-end PC with local storage, CD burner, a DVD-RAM burner, and two disks for a Hewlett-Packard file server. With this equipment, IIHR will be able to expand its program in hydrometeorology. This equipment will bring Iowa into the IDD system which provides Level II data that will enhance the institution's overall research capability.